Shared Software Database

The objective of this project is to develop techniques for searching for and sharing software using wide-area networks. This will enable software reuse to go beyond libraries; a program written for a single project may not be used directly, but instead be used as a template for similar programs in other projects. The principal investigator is conducting new research into indexing and querying software databases. Indexing information must be generated automatically, with no extra effort by the program creator. Initially he is augmenting an existing CASE tool to generate such indexing information. Later research will integrate other mechanisms for categorizing software. Another part of the project is to develop a distributed query mechanism for widely distributed, autonomous, software databases. This will incorporate features such as automatically canceling queries which generate too many results. An interface which helps user specify and refine queries is being designed. Although the focus of this work is on sharing computer software, the techniques developed could prove useful in sharing other information, such as data from scientific experiments or limited interest (and therefore unpublished) studies.